GIS Based Hydrologic Modeling of Watershed Processes Creativity Award

The objective of the proposed research is to utilize expert systems technology to interact between the last amount of data available from Geographic Information Systems and hydrological and/or environmental watershed models. Watershed programs such as HEC1 and HEC2 require a large number of variables which are available or could be extracted from Geographic Information Systems. Another objective of the proposal is to relate economics to land use and development. This will result in an environmental accounting system which could lead to a true value of proposed development of a given watershed. %%% It is the goal of this project to develop the required methods, procedures, and software under an expert system shell to establish the connection between the Geographic Information System, HEC1 and HEC2.